Development of Simulation Models and Biosensors to Detect Biological Agents in Water Distribution Systems

The Industry/University Cooperative Research Center for Water Quality at the University of Arizona will collaborate with the QUESTOR Centre of Queens University of Belfast and the National Centre for Sensor Research of Dublin City University, Ireland. These centers will perform research to develop and evaluate sensors and simulation models for monitoring the safety of drinking water. The project will develop and evaluate a new lab-on-a-chip technology using high throughput rates for monitoring water quality parameters in real time. These chips will be developed at the University of Arizona.